CAREER: Designing Embedded Systems with Domain-Specific Languages

Designing Embedded Systems with Domain-Specific Languages
Stephen A. Edwards

This goal of this project is to provide tools to designers of embedded
systems that will allow them to more quickly create correct systems.
It proposes to do this by providing domain-specific languages and
compilers. Such succinct, abstract languages reduce development and
testing time by providing more formal, correct-by-construction
methodologies and by enabling automatic implementation techniques.
The result will enable the development of these systems to proceed
beyond the current ad hoc C-and-assembly approach.

The project addresses three issues in the design of many embedded
systems: real-time software, software for communication, and software
for communicating across the hardware/software boundary.
These issues are addressed through the following specific investigations:

New Compilation Techniques for Synchronous Languages

Synchronous languages such as Esterel provide very predictable
real-time behavior but are challenging to compile. This project
includes developing new, more efficient compilation techniques for
large systems described in the Esterel language and its variants.

New Languages and Compilers for Communication Protocols

Network communication is becoming a crucial part of every embedded
system, but the growing complexity of the protocols and the need for
bandwidth (e.g., for video) makes this software difficult to develop.
This project includes the development of a new language for
describing such protocol software and a compiler for producing
efficient implementations.

New Languages and Compilers for Device Drivers

Writing software that communicates directly with hardware is currently
tedious and error-prone, and unfortunately even more important in
embedded systems since they tend to have application-specific
peripherals. This project aims to simplify this task by creating a
language and compiler for writing device drivers. The results of this
research will enable more diverse languages for communicating across
the hardware/software boundary.

This project is also addressing the recurring complaint that academia
does not produce students who understand both hardware and software
well enough to be effective embedded systems designers by developing
new courses along these lines. At the undergraduate level, a new
embedded systems project course is being developed that will give
students the opportunity to learn about and use some of these new
techniques. At the graduate level, a more sophisticated course is
being developed that focuses on languages for describing embedded
systems and isses with their semantics and implementation. This will
give future designers more tools for developing embedded systems and
will prepare students for research in automating embedded system
design.

The results of this project are being disseminated in three ways:
through conference and journal papers, through the release of all
developed software to the public domain, and through the education of
students in the use of the languages and compilers developed. Just as
computer-aided design tools have enabled the rapid, correct design of
fantastically complex integrated circuits, this work is enabling the
quick, correct design of tomorrow's complex embedded systems.